University - Industry Cooperative Research Programs in the Mathematical Sciences: Novel Parallel Molecular Dynamics Algorithms for Simulating Thin-film Depositions

9626859 Deng The University-Industry Cooperative Research Programs in the Mathematical Sciences are programs designed to establish a mechanism for exchange of mathematical scientists between academia and industry at different stages of their careers. These programs will strengthen the links between industry and academia and identify and encourage new avenues of research in the mathematical sciences. The University-Industry Postdoctoral Research Fellowships provide two years of support for recent recipients of doctoral degrees in the mathematical sciences. These awards are a means of contributing to the future vitality of the scientific effort of the nation. The postdoctoral fellow will work closely with scientific advisors from both academia and industry. The postdoctoral fellow will work under the direction of Satoshi Hamaguchi at IBM and Yuefan Deng at the State University of New York at Stony Brook. The research concerns the study of deposition and etching of thin films, focusing on atomic scale phenomena. This activity involves modeling and simulation. The use of parallel computation is expected to improve the number and length of simulations to provide a better understanding of the phenomena.